ITR: Universal Access to Programming--A Cross-Generation Learning Community

EIA-0081102
Rosson, Mary
Virginia Polytechnic Institute and State University

ITR: Universal Access to Programming-- A Cross-Generational Learning
Community

Issues of lifelong learning can be addressed by informal education--
voluntary and self-directed learning activities taking place in diverse
settings (often outside traditional classrooms) that incorporate a variety
of learning methods and are motivated by intrinsic interests such as
curiosity, completion of a task itself, or social interaction. The
voluntary and self-directed nature of these informal activities make them
ideal for reaching populations outside traditional education settings.
With respect to informal education on programming, modern visual simulation
environments have many features that make them appealing. This research
will investigate the effectiveness of a state-of-the-art simulation
programming environment as support for informal education of a diverse
population of end-user programmers within the context of an ongoing
research project on community network infrastructure. Key research
objectives include:

* Characterization of the programming literacy gained through visual
simulation programming and a determination of how this knowledge and its
accusation is mediated by the maturity and background of end users.

* Analysis of the role of the existing local community as a learning
community in building and maintaining the programming skills of end users
of varying ages and roles.

* Prototyping and evaluating a framework for cumulating and sharing the
artifacts and practices of end-user programming within the learning
community.